Routing and Scheduling of File Transfer in Packet - Switched Networks

9505963 Mao Data traffic in networks has always been dominated by file transfers. In today's high-volume applications like the Internet bulletin boards, most files are simple text files. In the future, files are expected to consist of hypertext documents, with significant audio and video components. Already, a few seconds of low-quality audio occupy hundreds of kilobytes. These numbers are indicative of the large sizes of future multimedia files. Other applications of the future which are thought to involve large file sizes are those arising from scientific applications, large-scale databases and network-wide system backups. In this proposal the principal investigators take issue with the notion that large files should be routed as small files conventionally are -- by breaking up the file into packets and relying on packet routing algorithms. They examine and propose to study the problem of scheduling large file transfers. Past approaches traditionally avoid collecting information across networks to schedule particular files, simply because the overhead of doing so overwhelms any benefits accrued in computing optimal schedules. However, when file sizes are very large and are also known in advance of transmission, it makes eminent sense to collect information and compute good schedules, thus utilizing network resources efficiently. The researchers will formulate a file transfer scheduling problem, argue its importance, assess shortcomings in the available research on this problem and outline issues for future research. *** ******* Darleen Fisher Program Manager Networking and Communications Research Program 4201 Wilson Blvd. Room 1175 Arlington Va 22230 (703) 306-1949 (703) 306-0621 (FAX)